Posdoctoral Research Fellowships in Chemistry

Dr. Eileen M. Spain has been awarded a Postdoctoral Fellowship in Chemistry. Dr. Spain's doctoral degree was from Utah University under the supervision of Professor Michael Morse. She intends to continue her research with Professor Stephen Leone at The University of Colorado. Dr. Spain's career goal is to study electronic orbital alignment effects in the tranistion metal bond activation of small molecules such as hydrogen, oxygen, and methane. As a graduate student she studied the electronic structure of metal-metal bonds. In her postdoctoral work she will develop experiments using orbital alignment effects on chemical reactions. %%% The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural progam designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.